CAREER: Turning Automation into a Team Player: The Development of Multisensory and Graded Feedback for Highly Automated (Flight Deck) Systems

The introduction of modern technology to a variety of complex dynamic domains has led to benefits such as an increased precision and efficiency of operations. These benefits appear to accrue primarily in situations where automated systems perform tasks on their own, i.e., without operator involvement. In other situations, where humans and machines need to cooperate and coordinate their activities, unexpected difficulties with human- automation communication are being encountered. The short-term goal of this combined research and education program is to improve the communicative skills of modern (flight deck) technology through the development of new forms of multimodal and graded automation feedback. Its long-term objective is to prevent the (re)creation of similar or new problems with human-machine collaboration by training students at the University of Illinois in a practice-oriented approach to system design where the constraints of the human, the machine agent, and the task environment are identified and integrated early on. This project serves to advance our understanding of mechanisms and strategies mediating successful and poor human-automation coordination. It emphasizes the importance of combining a reactive and a proactive approach to reducing difficulties with human-machine communication. And it contributes to the important goal of promoting the transfer of basic research results to applied system design.